Purchase of an Isothermal Titration and a Differential Scanning Calorimeter

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Emory University will acquire an isothermal titration calorimeter and a differential scanning calorimeter. This equipment will enhance research in a number of areas including a) engineering and structure/function studies of proteins; b) binding of reactant, inhibitors and coenzyme to B12-dependent ethanolamine deaminase; c) design of self-assembling peptide materials; d) template-directed polymer synthesis; and e) exploration of colloidal systems.

Calorimetry is an extremely useful tool in modern analytical chemistry. Calorimetric analysis is used to measure the thermal energy (heat) exchange that occurs during molecular interactions and reactions. Thus it can provide a very reliable and sensitive method for determining the thermodynamic properties of materials such as changes in heat capacity of liquid and solid samples.